Ergodic and Geometric Properties of Diffeomorphisms

Wilkinson will continue to extend her previous work toward an understanding
of the dynamics of partially hyperbolic diffeomorphisms.
In particular, with her collaborators, Wilkinson proposes to address
the issue of density of stable ergodicity in the space of partially
hyperbolic diffeomorphisms, and the existence of Sinai-Ruelle-Bowen measures
for these diffeomorphisms. Wilkinson will also study the dependence
on smooth parameter of invariant structures for partially hyperbolic systems.

A diffeomorphism is a way of smoothly rearranging the points
in a space. A diffeomorphism is a natural object, arising, for
example, in the study of planetary motion. By applying a
diffeomorphism repeatedly, one obtains a dynamical system; each iteration
corresponds to a unit of time in the evolution of the system. For any
given space, there are infinitely many diffeomorphisms, with widely
varying dynamical behaviors; a goal of dynamics is to arrange
diffeomorphisms into classes whose dynamical behavior can be understood.
One class of diffeomorphisms whose dynamics are now well-understood
are Smale's Axiom A, or hyperbolic, diffeomorphisms, which
are chaotic: among other things, they display sensitive
dependence on initial conditions. This project aims to better
understand the behavior of another important class of diffeomorphisms,
called partially hyperbolic diffeomorphisms. Partially hyperbolic
diffeomorphisms have many of the features of Axiom A systems,
but their dynamical behavior is yet to be completely understood.